BLAST 2013, 2014, 2015

BLAST 2013, 2014, 2015
The 2013-2015 BLAST conferences will be the fifth through eighth in a series of yearly meetings devoted to the foundations of mathematics, with the BLAST 2013 meeting being held during August 5 to 9 at Chapman University in Orange, California. The BLAST conference series focuses on Boolean algebra, lattice theory, algebraic logic, general algebra, set theory, and set-theoretic topology.New Mexico State University will host the 2014 meeting and the University of North Texas will host the 2015 meeting.

Each year this grant will support the participation of 15-20 graduate students and recent Ph.D.'s and 12 speakers. Participation by women and minorities will be actively sought and encouraged. The conference series provides an environment for graduate students and young researchers to learn about new developments in several related areas of the foundations of mathematics and provides them with a venue to showcase their own work.

Conference website is at http://euclid.colorado.edu/~kearnes/blast